Theoretical Calculations of Standard Model Phenomenology

9507688 Reno The unified theory of electroweak interactions has several unresolved problems, the key ones being the understanding of what is the mechanism that breaks the symmetry between the weak and electromagnetic interactions and how are the fermion masses generated. This research seeks to propose experimental tests for discovering the symmetry breaking mechanisms in high energy collisions at present and future colliders. ***